The Role of Tenascin in CNS and PNS Development

The expression, regulation and function of various forms of the extracellular matrix molecule, tenascin, will be studied. Tenascin appears to be a molecule important to cellular migration in the developing nervous system, but its role is poorly understood. Molecular probes will be used for in situ hybridization to tissue sections and neural cultures to study the cellular expression of tenascin variants. Possible regulation of tenascin expression by peptide growth factors will be studied by Northern blot analysis. Effects on cell proliferation, migration and differentiation will be studied by time-lapse videomicroscopy in cells cultured with tenascin variants, antibodies to tenascin, deglycosylated tenascin and peptides that block tenascin binding.